PYI: Digital Signal Processing Techniques for Image Analysis

Meng This research focuses on architectures and applications for digital signal processing (DSP). A specific goal is a machine vision system for optical lithography alignment using DSP techniques. To accomplish this goal, new adaptive filtering techniques for edge and line detection and overlay measurements are being developed. To help with the design of the algorithm, a high-level simulator for evaluating algorithms is being developed to run on a distrubutive system. Research is concentrating on automated gate-level synthesis of efficient hazard-free asynchronous circuits (using standard cell libraries), developing a unified approach to synchronous and asynchronous circuit synthesis, and integration of synthesis and verification of both synchronous and asynchronous designs into the same toolset.